NSF Young Investigator Award

A novel electronic phenomenon of commensurability resonances in quasi-one dimensional metals will be experimentally investigated. Low temperature, high magnetic field, high angular precision torque, magnetoresistance, and magnetothermal anisotropy studies will be undertaken, aimed at understanding the nature of this new effect.